Role of Protein-RNA Interaction in Virus Assembly

The lifecycle of many spherical (icosahedral) viruses involves co-assembly of the protein
capsid around the viral genome. However, the details of this process are largely
unknown. Important questions remain about how capsid protein associates with the
nucleic acid to initiate assembly and complete virion, and how the viral genome becomes
organized within the capsid. We will examine assembly of Cowpea Chlorotic Mottle
virus (CCMV), a plus strand RNA plant virus. This is an ideal model for studying in vitro
assembly because CCMV capsid protein (CP) can assemble into empty capsids, virus-like
particles with non-specific RNA, and infectious virions with viral RNA. We hypothesize
that virion assembly proceeds stepwise by (i) non - specific binding of CP to RNA, (ii)
specific binding to viral RNA, (iii) refolding of the RNA - protein complex, and (iv)
finally, cooperative association of CP to the complex, leading to completion of the
capsid. This hypothesis implies that the protein - protein interactions will affect the
organization of the packaged RNA and that RNA structure will have a profound effect on
capsid assembly.

Understanding the assembly of empty capsids is a preliminary to studying assembly of
RNA-filled virions. Study of the protein-protein interaction is complicated because the
CCMV capsid is an oligomer of 180 copies of CP. We have developed analyses of
assembly that allow us to deduce elements of the mechanism and thermodynamic and
kinetic parameters. Experimentally, assembly will be observed using light scattering,
liquid chromatography, and electron microscopy.
Assembly of RNA-filled capsids adds an additional layer of complexity. In vivo, only
viral RNA is encapsidated; in vitro, encapsidation is promiscuous. The role of RNA in
directing assembly remains to be determined. RNA binding will concentrate CP, but is
also likely to affect CP - RNA quaternary structure. We have observed distinct CP - RNA
complexes that are likely to play critical roles in assembly and specificity. We will
physically and structurally characterize these complexes and their formation on viral and
random RNA. Subsequent capsid assembly will be observed with electrophoresis, and
solution assays using RNA with bound complex, bare viral RNA, and random RNA as
substrates. We expect that protein - protein interaction energy, observed for formation of
empty capsids, will probably contribute to the cooperativity of assembly. We anticipate
that these studies will yield a detailed picture of a basic biological process, the assembly
of an infectious virus. These studies will be a paradigm for understanding assembly of
other viruses, identifying new targets for anti-viral intervention, and for manipulating
virus assembly to yield novel nano-structures.